Urban Systemic Initiative/City of El Paso

9350138 Navarro The El Paso USI will be implemented through the El Paso Collaborative for Academic Excellence, an organization of school district superintendents, university officials, civic leaders and the mayor. The Collaborative will focus on three areas: establishing community consensus on a set of competencies; determining current policies and practices that affect mathematics and science; developing comprehensive plans for change that build upon district strengths. Upon completion of the self study, the El Paso USI will continue with the development of a comprehensive plan for change for the district that will build on identified strengths and focus attention on areas of greatest need. The University of Texas at El Paso will house the Collaborative and provide leadership over USI activities. The award period is for 12 months. ***